Resesarch Experiences for Undergraduates

This grant will continue support for a summer REU Site at the Molecular Physics Laboratory at SRI International, Inc. Students will be recruited nationally, and will work with SRI staff scientists who will serve as mentors. Research topics will cover a broad range of atomic, molecular, and optical physics.